Sounds of the Sea

9705519 Spitzer The New England Aquarium (NEAq) will develop "Sounds of the Sea", a 2000 sq. ft. traveling exhibit that will provide visitors an opportunity to learn about the importance of sound in the ocean and acoustic oceanography as a tool for research, for such issues as global change. Both natural and anthropogenic sounds will be examined. The goals of the exhibit are to demonstrate the richness of sounds in the ocean, to educate visitors about the physics of sound in the air and under water, and to present current scientific research on the physics and biology of underwater sounds. One of the special features will be real ocean sounds in real time. Visitors will be able to hear sounds picked up by hydrophones in the inner and outer Boston Harbor and view spectral data. The exhibit will reach a broad audience including those with visual and aural impairments. NEAq will collaborate with MIT's Department of Ocean Engineering, the MIT Sea Grant College Program, Wood Hole Oceanographic Institution, and the WGBH Educational Foundation's National Center for Media Accessibility in the development of the exhibit. Supplementary materials for visitors to the exhibit will include an exhibit guide and a web site. Complementary programming for use by formal educators will include pre and post visit materials and special programming for school groups.